Galois structure, Iwasawa theory and arithmetic geometry

The Principal Investigator will conduct research in two areas that will
lead to new results in number theory and arithmetic geometry. The
first is concerned with several questions that are centerd around
conjectures of Birch and Swinnerton-Dyer type. These questions involve
arithmetic Galois module structure, Iwasawa theory and Arakelov
theory. The second topic deals with the study of relative Galois
structure invariants using techniques from relative algebraic
K-theory.

The research described in this proposal lies in the field of
arithmetic algebraic geometry. This is a subject that blends two of
the oldest branches of mathematics, namely number theory and
geometry. It has now blossomed to a point where it has resolved
problems that have stood for centuries--the most famous recent example
of this is the resolution of Fermat's Last Theorem by Andrew Wiles. In
addition to its central importance within mathematics, this area has
far-reaching concrete applications in fields as diverse as physics,
robotics, data processing and information theory.